SBIR Phase II: Ultrafast Block Retrieval for Optical Storage

This Small Business Innovation Research (SBIR) Phase II project will develop and commercialize an ultra fast block data retrieval method for the company's patented chiral film-based optical data storage system. The technology will combine ultrahigh storage capacity with ultra fast retrieval speed. The current retrieval rates of CD-ROM, DVD-ROM and MO technology is inherently limited for applications such as image retrieval for medical diagnosis or target recognition. The company's block retrieval technique is a new method for solving the bottleneck of data retrieval. Using imaging and pattern recognition techniques, data is retrieved in 2D blocks. This retrieval method will result in orders-of-magnitude increases in throughput and increases in storage density.

Since the need for high density, high-speed storage is continuing to escalate, there will be a ready market from storage system vendors who supply products to the myriad of industries whose business depends upon volumes of storage and quick retrieval.